Designing with Tolerances

This project deals with mechanical tolerancing in design. Tolerances play an important role in precision engineering. The quality, reliability and cost of products manufactured depend very much on the tolerances prescribed. This project seeks fundamental understanding of the relation among process capability, nominal dimensions and tolerances in mechanical design. Two problems are considered: (1) Can tolerances be rationally assigned (synthesized) given nominal design dimensions, process capabilities, and cost structure? (2) Can nominal dimensions be synthesized from process capabilities and constrains? These two problems will be formulated conceptually as non-linear optimization problems by developing the explicit modeling, numerical approximation, and computation structure. The research thus addresses the crucial issue of quantifying the quality of a design from the geometric and computational points of view by relating tolerances, nominal dimensions, costs, and process capability. The concurrent ability to rationally allocate (during the design stage) and trade off among tolerances in manufacturing, assembly and operation promises both a drastic shortening of the current design lead time, and a more efficient manufacturing environment.